SBIR Phase II: Micromachined Ultrasonic-on-a-Chip for Medical High-Resolution Imaging

This Small Business Innovation Research (SBIR) Phase II project will optimize and finalize the design and the simulation of the ultrasound-on-a-chip (UOC) probe, and itegrate it into a portable ultrasound medical imager with high spatial resolution and enhanced picture definition for noninvasive clinical diagnosis of the internal lumens. The UOC probe architecture is based on patented ultraprecision micromachining technology.

The objective is to fabricate and test the UOC probe and integrate it into a portable cost-effective medical imaging prototype system for noninvasive real-time high-definition volumetric medical imaging. The realization of the merits of the ultrasound-on-a-chip based portable medical imager will open a wide window of commercialization opportunities for medical and nonmedical applications.